Molecular Organization in Mutable Collagenous Tissues

Collagen fibrils are the principal components that give tensile strength and stiffness to animal tissues. The fibrils are always found together with other macromolecule - combinations of specific carbohydrates and proteins: the association of collagen fibrils with these other constituents creates tissues with diverse structural and functional properties. Collagenous tissues are thus properly thought of as biological fiber-reinforced composites. In most instances, the tensile properties of collagenous tissue are constant over short periods of time, because the collagenous and noncollagenous components are stable, as are their associations with one another. In these stable tissues the interfibrillar molecules can only be guessed at. No reliable measurements have been made. Echnioderms, in contrast, developed at an early stage of their properties. under the control of the nervous system, these tissues can be rapidly switched from a strong and stiff state to a state in which they easily flow. In the extreme, this ability allows echnioderms to escape predation, as in the autotomy of a portion of the arm of a brittle star, or of the viscera of a sea cucumber. Sea urchin spines are held against the body wall by a conical ligament. When the spine moves, this ligament easily changes length. At other times (for instance when the animal is resisting being forcibly removed from an underwater crevice), the ligaments become stiff and the spines are nearly immovable. The body walls of sea cucumbers can flow, permitting the animals to move into and through narrow openings, but can also become stiff, preventing a predator from dislodging the animal from a protected niche. The collagen fibrils in these and other echnioderm connective tissues are as stable as those of other animals. But they are able to slide past one another when the tissues are int heir compliant state, and are prevented from sliding when the tissues are stiff. The surfaces of the fibrils and the material between the fibrils must sometimes permit the fibrils to slide, while at other times they lock them in position. The experiments described in this proposal are designed to tell us what molecules are present on the surfaces and between the collagen fibrils in selected echinoderm tissues, how they are organized, and how they are altered to change the tissue properties between stiff and flowing states. Besides contributing to an understanding of these inherently interesting tissues, the results of the planned research h may lead to a better understanding of the composite structure of collagenous tissues in general, including those of vertebrates.//